Problems in number theory and representation theory

Gunnells proposes to work on problems in number theory and
representation theory in three broad areas. First, he will focus on
topics related to cohomology of arithmetic groups and allied areas,
such as geometry of locally symmetric spaces and connections with
arithmetic geometry. Second, he will study multiple Dirichlet series
attached to Weyl groups and affine Weyl groups and their connections
to combinatorics, representation theory, and automorphic forms.
Third, he will investigate the geometry of Kazhdan-Lusztig cells in
Coxeter groups and their connections with combinatorics and
representation theory. As a major writing project, he will continue
to work with Hirzebruch and Zagier on the updating of their book "The
Atiyah-Singer theorem and elementary number theory."

This proposal deals with number theory and representation theory.
Number theory is the study of the properties of the whole numbers, and
is the oldest branch of mathematics. Representation theory is the
systematic study of symmetry, through the development of simple
mathematical objects that encode the fundamental irreducible pieces of
symmetry. A principal aim of the proposal is to explore relationships
between these two subjects in the spirit of the "Langlands
philosophy," which predicts deep connections between number theory and
representation theory. Today the questions and phenomena addressed by
these subjects serve as driving forces in much of contemporary
mathematics research. Moreover, the subjects have contributed many
applications in such diverse areas as codes and data transmission,
chemistry, physics, and theoretical computer science.